A "Lending Library" of Physics Demonstrations

Through this project, Lamar University will develop physics demonstrations to constitute a "lending library" for physics and physical science teachers in schools located near the University. Each packaged demonstration will reinforce a single concept in physics and will be used to supplement the usual lecture/demonstration format. Members of the Lamar University physics department will design, build and maintain the demonstrations, and expect to produce 20 packages during the period of this project. The implementation of the project will be carried out in the frame work of four components. (1) the design and construction of self-contained demonstration packages; (2) the maintenance of these single concept demonstration packages at Lamar University, to be checked out by area precollege teachers; (3) the presentation of workshops on the effective use of the demonstration; (4) follow-up visits to the schools where the demonstrations are being used. This project is developing an innovative approach to enhancing instruction in phyics, an approach with good potential for serving as a model for other institutions and disciplines.